Making Effective Use of GPS and Strainmeter Data: A PBO Pilot Project

0454475
Agnew

This project is improving methods for analyzing Earth deformation recorded by
strainmeters and by permanent GPS arrays including those of the Plate Boundary
Observatory component of EarthScope. To improve the calibration of borehole
strainmeters, existing data is being analysed to provide different models for
strain coupling, and tools and methods for general use. New methods are being
developed to estimate strain changes from displacements measured by GPS, and to
examine sources of noise, and of possible geophysical signals, in such data.
These methods will use statistical descriptions that allow for temporal
correlation and non-Gaussian behavior. The results from existing GPS networks
are being compared with calibrated strainmeter measurements around the San
Francisco Bay area, at Parkfield, in Los Angeles, and at Yucca Mountain. One
result is to help create a community of strain-data users, in training students
and providing analysis tools.